PostDoctoral Research Fellowship

This award is made as part of the FY 2023 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Joshua Wang is “Floer theory, categorification, and applications to low-dimensional topology". The host institution for the fellowship is the Massachusetts Institute of Technology, and the sponsoring scientist is Tomasz Mrowka.